Patterns of Organized Climatic Variability

Abstract ATM-9226833 Bradley, Raymond S. University of Massachusetts Title: Patterns of Organized Climatic Variability To gain insight into the possible causes and mechanisms of climate variability, this project will identify the timescales, temporal evolution, and spatial patterns of significant oscillatory and episodic large-scale climatic variability recorded in proxy records of climate spanning the last 500-1000 years. The project will specifically address questions related to long-term changes in the tropical and extra-tropical patterns of interannual variability that may be related to the El Nino/Southern Oscillation (ENSO) and focus on the patterns of organized interdecadal variability and its possible connections with lower-frequency ENSO variability, and postulated century-scale climate oscillations (particularly in the North Atlantic and surrounding continental regions) that may be connected with the North Atlantic thermohaline circulation. Advanced statistical tools will be applied to proxy data networks, combining dendroclimatic, coral, historical, ice core and other climate proxy reconstructions. Attempts will be made to separate out distinct indicators where possible (e.g. surface temperature and precipitation) and to ensure proper calibration of the climatic variability evident in proxy indicators. Similar statistical analyses will be made of the climatic field output of several long general circulation model integrations.